Travel Support for "Fluid-Volcano Interaction" Penrose Conference

Understanding the feedback between volcanic processes and fluid migration requires a truly interdisciplinary effort. To promote discussion of these processes among diverse earth scientists, a Geological Society of America Penrose Conference, "Fluid-Volcano Interactions", will be held October 4-9, 1992. Participants will include volcanologists, hydrogeologists, geochemists, geomorphologists, geophysicists, and others united by an interest in volcano-related physical and chemical processes. This award will provide travel funds for American graduate students to attend the conference.